Researching the Effectiveness of Virtual Reality as a Tool for Informal Science Education

The Computer Museum in Boston, MA is requesting a SGER of $49,000 to support preliminary research into the use of virtual reality as a tool for informal science. Using a virtual reality environment of the human cell, they will test to determined: 1) if people gain a physical understanding of the human cell, including a sense of scale, the shape and location of elements, and the physical relationship between elements, and 2) if people gain an understanding of the concept of a system by interacting in the virtual world of the human cell. The PI will be David Greschler, Exhibit Developer at the Museum. He has developed two major exhibits at the Museum, has worked at the MIT Media Laboratory, and has taught educational software design at the Harvard Graduate School of Education. Eben Gay will be co-PI and will have oversight for the software development of the virtual reality. He has been Principal Engineer at Digital Equipment Corporation since 1980 and has been building virtual realities since 1982.